Emergency Recovery and Preliminary study of Catarrhine Primate Fossils from the Yongle Lignite Mine, Zhaotong, Yunnan Province, China

Fossils representing two, probably new, species of catarrhine primate were recovered in November 2009 from the lignite mine site of Yongle, located in the Zhaotong Basin of northeastern Yunnan Province, China. The fossils recovered include a complete cranium of a juvenile hominoid, and a nearly complete mandible of a colobine. Preliminary study of associated fauna suggests that the site is of late Miocene or early Pliocene age. This is an interval of known global climatic change that witnessed the extinction and origination of many terrestrial mammals due to increased seasonality and heterogeneity of environments. The new Yongle hominoid and colobine fossils thus appear to be, respectively, one of the geologically youngest of the Miocene apes and one of the geologically oldest of the Eurasian monkeys. The objectives of this project are to: (1) immediately complete the excavation of the primate-bearing locality due to duel threats of the impending monsoon season and potenetial vandalism, (2) conduct initial preparation, physical stabilization, and CT-scanning of the hominoid cranium and associated endocast, and (3) conduct preliminary paleomagnetic analysis on samples from the fossil-yielding section to help establish the geochronological framework of the site.

This project has important implications for studies of primate and mammalian evolution. It brings to light new species of fossil catarrhine primates that may represent early members of the gibbon and colobine lineages, and promotes a deeper understanding of the latest Miocene in East Asia, a poorly known period that played a crucial role in the evolution of modern faunal lineages due to the dramatic global and regional environmental changes during this time. The broader impacts of this project include the collaboration with Chinese scientists and institutions to increase our knowledge of mammalian and primate evolution in the late Tertiary of Asia.